Advancing Inclusive Leaders in Astronomy

The Institute for Scientist and Engineer Educators (ISEE) has developed a series of programs that train graduate students and postdoctoral fellows in technical fields to become effective educators. They are expanding their emphasis toward broadening participation of underrepresented groups in Science, Technology, Engineering, and Mathematics (STEM) fields by emphasizing inclusiveness and inquiry-based learning. Greater participation by women and members of underrepresented groups in STEM will secure our nation's future and long-term economic competitiveness.

ISEE established the Professional Development Program for early career scientists learning to teach in 2001. Participants commit ~100 hours to a year-long cycle of activities including an introductory workshop and follow-up activities. Many will return to become mentors in the program. ISEE will develop, test, and implement Inclusive Leadership Institutes. The project will also lead to a Mentor Workshop in Hawai'i, and 75 Hawai'i mentors will be supported to attend the workshops.